SBIR Phase I: Abraisve Free Chemical Mechanical Planarization (AFCMP) Process for Next Generation Copper Interconnects

This small business innovation research (SBIR) Phase I project proposes the development
of a novel abrasive-free recyclable copper CMP (AFCMP) recyclable process based on
an unique patented iodine chemistry which leads to the formation of a soft, insoluble
copper iodide layer on the surface of the copper. This layer can be gently removed by the
polishing pad without the need for particles in the slurry (abrasive-free slurry). This
process is in contrast to conventional CMP processes that forms a hard copper oxide layer
(by addition of hydrogen peroxide), which require both etching chemicals and hard
abrasives (alumina/silica) for removal. In contrast, the copper iodide layer possess nearly
an order of magnitude less hardness, thus can be easily removed by the polymer polishing
pad. The insoluble copper-iodide in the effluents can be removed by filtration and the
chemicals can be recycled back for CMP polishing.
This project will attempt successful demonstration of (i) copper polishing using abrasive-free
CMP slurries to meet present technical requirements, (ii) compatibility of AFCMP
slurries to next generation ultra-low k dielectrics materials, (iii) the ability to filter and
obtain consistent performances with the filtrate slurries.

The rapid integration of low k interconnects and AFCMP is expected to lead to
substantial profits and energy savings. Environmental friendly manufacturing, and
increase in hi-tech jobs. US will be a leader in copper low k CMP technology; and US
based semiconductor companies will have a local slurry supplier. Ensure US leadership
in nanotechnology.